Cooperative NSF/ILI and ASEE/DELOS Symposia

This project is a mutual endeavor which will provide a highly visible outlet for the dissemination of NSF Instrumentation and Laboratory Improvement (ILI) and Course and Curriculum Development (CCD) grant results. Poster sessions and technical paper sessions sponsored by the ASEE Division for Experimental and Laboratory Oriented Studies (DELOS) will be held at each year's ASEE Annual Conference. Grantees of the ILI and CCD Programs will be invited to present the results of their grant projects at these sessions. *